Conference: Practice and Experience in Advanced Research Computing 2026 - Student Program

The Practice and Experience in Advanced Research Computing (PEARC) conference has traditionally included a robust student program. The program exposes students and scientists to career opportunities, people networks, and other resources that help students connect, build skills, and accelerate research. This proposal provides travel support to students to attend the PEARC26 conference (Minneapolis, MN, July 26-30, 2026) and participate in the Student Program. Students will be paired with mentors from a community of experts who will provide support and network opportunities to the students after the conference. Students will also have the option to present their research through lightning talks to all attendees. PEARC26's size (about 1000 participants) provides students in the Student Program with a unique opportunity to gain hands-on experience in advanced research computing and encourage their interest in pursuing a career in the field. The student program committee will recruit students from a broad range of academia, ranging from research-intensive R1s to teaching-focused community colleges.